Intermediate Energy Nuclear Research

Research in intermediate energy nuclear physics will be carried out at IUCF, CERN, and CEBAF. The IUCF work will probe threshold pion production via a new technique - recoil detection - made possible by the use of ultra-thin targets in the IUCF cooler ring and internal target facility. An array of silicon strip detectors built by the Northwestern group will be used for this purpose. The CERN experiment will determine the spin structure function of quarks in the proton and neutron by scattering polarized muons from polarized nuclear targets. Planning of electron and photon induced nucleon knockout experiments at CEBAF will be carried out. These experiments are designed to explore the quark sub- structure of nucleons and search for the onset of quark sub- structure effects in nuclear systems.